The BIOSCI electronic newsgroup network for the biological sciences

This multi-agency award will continue and extend the services provided by BIOSCI, and electronic newsgroup network which serves as a vehicle for communications between members of the international biological sciences community. In addition to forums for communications in specialized scientific fields, these services include newsgroups for experimental methods, scientific meeting and other general announcements, and journal contents/abstracts. Newsgroups dedicated to various aspects of the Genome Project are also in use. Electronic newsgroups have the potential to revolutionize communications among scientists, and their use will be actively promoted among the biological community through demonstrations, training sessions, and assistance with installation of news software. The newsgroups will be expanded. Archives of bulletins will be maintained for retrieval by FTP and e-mail. A database of all newsgroups dedicated to the biological sciences will be maintained along with a directory of electronic mail addresses of biological scientists.